Dissertation Enhancement: Extreme Floods, Typhoon Occurrences, and Climate Change in the Ara River Basin, Japan

9724761 Knox This award supports a 9 month National Science Foundation Dissertation Enhancement award for Dr. James Knox in the Department of Geology, University of Tokyo, Tokyo, Japan. Dr. Knox's student, Mr. Michael Grossman, will work with Dr. Nobuyuki Yonekura, Professor of Geology, on a research project entitled, "Extreme Floods, Typhoon Occurrences, and Climate Change in the Ara River Basin, Japan." The proposed research will examine the history of extreme floods in the Ara River basin in Japan and, through data analysis, the probability of their future recurrence. Current theories suggest that extreme floods in the region (and elsewhere) may be a direct result of human-induced global climate change and not a continuation of patterns occurring in previous eras. The proposed research will test global change theories by comparing past and present fluvial system data from the Ara River basin, with a specific emphasis on the hypothesized relationship between climate change-induced typhoon activity and regional flooding. Results of the research will offer insight into whether global climate change is indeed the primary determinant involved in apparent changes in fluvial regimes, and will provide empirical rationale for similar research in other regions throughout the world. ***